Mathematical Sciences: Conference on Numerical Analysis result Verification

This award supports a conference entitled: "Numerical Analysis with Automatic Result Verification: Mathematics, Applications, and Software". The conference will be held from February 25 to March 1, 1993, in Lafayette, Louisiana. The conference will be concerned with automatic verification of computations (interval analysis) in numerical analysis. The conference has three goals: 1. Bringing U. S. researchers up to date on automatic verification of computations; 2. Apprising young researchers and graduate students of the status and technology for automatically verified computations; 3. Providing a forum for interactions between industrial mathematicians and researchers in automatically verified computations.